Study of Galaxy Evolution with Near Infrared Imaging

Studies of galaxy evolution will make use of the previously unavailable capabilities of a newly completed near-infrared camera. This instrument allows improvements in sensitivity over the single detectors used earlier and, of course, permits imagery and a real coverage not even contemplated with the instruments available previously. The history of star formation at the galactic center will be determined by studying the variability of the individual stars. It will also be determined whether the "missing" mass in our Galaxy is in the form of massive sub- stellar objects (brown dwarfs). Two major surveys will also be undertaken, the first survey will be of 13 square degrees of the sky and the second survey of a much smaller area to somewhat greater depth. If current theories are correct, these surveys should detect primeval galaxies. The surveys will also provide considerable information about the distribution of low mass stars in the Galaxy, about distant active galaxies and quasi-stellar objects (QSOs), and, as with any pioneering survey, something new and unexpected will be found.